CAREER: Free Resolutions

DMS-0347342
Irena Peeva

The proposed research deals with the structure of free
resolutions and their applications in Commutative Algebra,
Algebraic Geometry, and Topological Combinatorics.
Resolutions will be studied over polynomial rings and their
quotients. In essence constructing a resolution over a ring R
consists of repeatedly solving systems of R-linear equations.
From another point of view, resolutions provide a homological
method for studying the structure of modules. The idea to
associate a resolution to a module was introduced in Hilbert's
famous 1890 and 1893 papers. This CAREER project focuses especially
on Castelnuovo-Mumford regularity and Koszulness of toric varieties,
lower bounds on Betti numbers, asymptotic structure of infinite free
resolutions, free resolutions over rings with restricted powers,
and monomial resolutions.

Peeva will organize a workshop and a summer school on resolutions.
She plans to organize other conferences as well. Such conferences
provide a forum for discussion of recent developments and foster
research. This CAREER project also aims to aid undergraduate and
graduate students, and postdoctoral fellows to discover the beauty
in mathematical ideas, to inspire them, and lead them to explore
exciting open problems and conjectures. Peeva is also writing a book
on resolutions.